The National Science Foundation CAREER Award: Demystifying the Program, Process and People

This conference proposal seeks to inform and promote the CAREER program among Education researchers at the American Education Research Association. The presentations will focus on the diversity of funded research efforts as well as on the experiences of four awardees. To maximize attendance at the session, information will be distributed to potential applicants prior to the conference by mailings to schools of Education and other graduate schools.